Energetics and Dynamics of Metallofullerenes

9507959 Echt This proposal for the study of "Energetics and Dynamics of Metallofullerenes", deals with the stability of metal atoms encaged in the newly discovered carbon structures called fullerenes. The approach will involve collisions between a pulsed beam of charged metal atoms of defined, tunable kinetic energy with a thermal beam of fullerenes at low vibrational energy. Experiments will be performed on C60, C70, and possibly some higher fullerenes. Among the metal that will be used are Y, Sc, La, Several rare earth elements, Na, K, Mg and Ca. Knowing the energetics of metallofullerenes will help in identifying species that are potentially useful for applications and in designing strategies to produce and isolate them in macroscopic quantities. ***